Dissertation Research: Behavioral Responses of the Ant Pheidole Dentata to Parasitism by the Phorid Fly Apocephalus Feeneri

Parasites draw nutrition directly from their hosts and adversely affect them in
many ways. Major workers in the ant species Pheidole dentata are susceptible to
parasitism by the phorid fly Apocephalus feeneri. Parasitism by the phorid is fatal for
the parasitized ant and previous work has shown that foraging majors will try to
conceal themselves when phorids are detected. In spite of this attempt to avoid
parasitism, a small percentage of majors are successfully parasitized by phorids. The
goal of this study is to examine changes of those parasitized majors by comparing
their behavior to that of non-parasitized nestmates. Equal numbers of parasitized and
non-parasitized majors will be marked in a colony and their behaviors observed using
standard ethogram techniques for the duration of the phorid's larval development.
Frequencies and sequences of behaviors in parasitized and non-parasitized majors
will be compared. To highlight the effect of parasitism on the specialized defensive
response of P. dentata, parasitized majors will be exposed to fire ants in the genus
Solenopsis. The outcome of these experiments will affect future ecological studies
with P. dentata and potentially bio-control efforts in other ant-phorid systems.